Discrete Mathematics for Prospective K-8 Teachers

Mathematical Sciences (21)

This project addresses the absence of textbooks and courses for prospective K-8 teachers that provide an introduction to discrete mathematics and how it can be used both to help prospective K-8 teachers achieve a better understanding of mathematics and to help their students achieve state and national standards in mathematics. The project develops an interactive discrete mathematics textbook for prospective K-8 teachers, changes prospective K-8 teachers' views of mathematics by exposing them to a college-level mathematics course which is taught interactively, and conducts high-quality professional development workshops for college faculty members who teach mathematics to prospective K-8 teachers. The project builds on the materials developed in a previous NSF-funded professional development project for K-8 teachers.